Support for a Conference on Process Tomography, October 30 - November 3, 1995, San Luis Obispo, CA

ABSTRACT CTS-9521981 It is proposed to provide partial travel support to a group of academic researchers to participate and present papers at the conference entitled "Frontiers in Industrial Process Tompography", to be held 10/30 to 11/38/1995 in San Louis Obis, CA. About 60 papers andsix invited lectures from several countries will be presented. The meeting is a timely forum for the latest scientific and technological development in process tomography, an emerging field of research. Application of Process Tomgraphy plays a critical role in process design and control in chemical, agricultural, pharmaceutical, mineral processing, energy, and environmental industries. The conference aims to disseminate new findings and to identify future direction of research. The meeting is co-sponsored by industry and Engineering Foundation. ***